Promoting Mathematics and Computer Science for Women

Scholarships are provided to support low-income students in the Associate of Arts degree program in computer information systems and in the first two years of the Bachelor of Science degree in mathematics. Midway is a women's college that attracts both traditional aged students and older students in transition or interested in second careers. Student progress is monitored closely and support services are recommended as needed. Support services include assistance in the college's mathematics lab, writing lab, and individually arranged tutoring.